Integrated Glaciochemical and Petrologic Studies of VolcanicAerosols

Volcanic aerosols, both fine silicate dust and gas-derived acid droplets, are thought to be important in affecting climate by reducing the amount of solar radiation reaching the earth's surface. Polar ice cores provide the only medium in which both the soluble gas-derived impurities and the insoluble silicate particles from volcanic eruptions are preserved. These volcanic layers of high acidity can be identified in the ice cores by a method of d.c. electrical conductivity. Petrologic studies of the sulfur and chlorine content of glass inclusions in phenocrysts of tephra will be used to estimate the total mass of volatiles released in volcanic eruptions. The main objective of the study is to determine the chemical composition of ice in layers of high electrical conductivity (acidity) in a Greenland ice core due to fallout from certain well-known volcanic eruptions and to identify the chemical compounds (acids) responsible for the acidity. Petrologic estimates of the volatiles associated with these eruptions will also be made in order to compare with the ice core work.